Physics Revolutions in Your Lifetime

The Department of Physics at Miami University, in cooperation with Central States Universities, Inc. and Argonne National Laboratory, is conducting one-week and two-day workshops for 20 physics teachers from two- and four-year institutions. Aimed at sharing ideas on how to teach undergraduate laboratories, the workshops focus on the Contemporary Physics Laboratory and the Electronic Instrumentation Laboratory at Miami University, which emphasize revolutions in physics and electronics in the lifetime of today's undergraduate students.